CISE Research Instrumentation: Controllers and Visual Sensors for Advanced Robotics

9422014 Koditschek The University of Michigan has received an award to purchase real-time control and visual sensing hardware, to support research in five robotics projects in the Departments of Electrical Engineering and Computer Science. The research projects include parallel vibratory parts orientation, rigid body manipulations, dynamical acquisition of multiple objects, gestural input recognition systems for remote robot guidance and remote teleoperation, and dynamically interpreted gestural control. ***